RI: Collaborative Research: Discriminative Knowledge-Rich Language Modeling for Machine Translation

This project investigates a novel approach for assessing the fluency and
grammaticality of alternative translation hypotheses that are created within
search-based Machine Translation (MT) systems. This task, commonly termed
"Language Modeling" (LM), has been explored primarily in the context of speech
recognition; however, current state-of-the-art language models (LMs) are not
effective at distinguishing between more fluent grammatical translations and
their poor alternatives. In contrast, the proposed approach, "Discriminative
Knowledge-Rich Language Modeling" (DKRLM), is explicitly designed to find the
most fluent and grammatical translations within the search space by comparing
the linguistic features of the translation hypotheses against very large
"clean" monolingual corpora. The intuition is that more grammatical
translation hypotheses should contain higher proportions of features seen in
the large corpora. An important contribution of the project is in exploring
different types of linguistic features to identify those that are most
informative for the comparisons. Moreover, discriminative training is
performed to incorporate the features into a system-independent scoring
function, replacing traditional LMs in MT systems. The broader impacts of the
proposed work include both broader adoption for the methodology as well as
wider use of the new DKRLM functions to other search-based NLP applications
that aim at generating fluent grammatical text. This includes search-based
approaches to Speech Recognition, Natural Language Generation (NLG), Optical
Character Recognition (OCR), Summarization, and others.